Free Boundary Problems and Mass Transfer

PI: Mikhail Feldman, University of Wisconsin
DMS-0200644

ABSTRACT
--------------------------------------------------
The project consists of two main topics: (1) Free boundary
problems for nonlinear elliptic equations. One of objectives
is to develop techniques for studying free boundary problems
arising in the models of compressible fluid dynamics, in
particular to study existence, uniqueness and stability of
multidimensional transonic shocks for Euler equations for
steady and self-similar potential flows. Euler equations can
be written as a single second order, nonlinear elliptic-hyperbolic
equation of mixed type for the velocity potential, if the flow
is steady or self-similar. Transonic shocks are discontinuities
in the gradient of the solution such that the type of equation
changes from hyperbolic to elliptic across the shock surface.
Transonic shocks arise in many situations of physical importance
(steady supersonic flows around an obstacle, shock reflection for
self-similar flows). (2) Monge-Kantorovich mass transfer problem.
The questions to study include geometric and measure-theoretic
properties of solutions, and applications to partial differential
equations.

Free boundary problems arise naturally in many models in physics,
fluid dynamics, economics. Free boundaries correspond to sharp
changes in the variables describing the problem. Significant
progress has been made during last several decades in the study
of free boundary problems. However in the case of nonlinear partial
differential equations many important questions are yet to be studied.
This is the first theme of the project. Better understanding of
properties of free boundaries, such as stability, makes possible to
understand complex phenomena in models and applications. We plan to
study transonic shocks in a flow of compressible fluid or gas.
Another area of the project is optimal transportation problem.
Recently many fundamental properties and important applications of
this problem within and beyond mathematics were discovered, in
particular its connections to nonlinear partial differential
equations, and applications in models for front formation in the
atmosphere, kinetic theory, fluid flow, elastic crystals, granular
materials, and microeconomic decision problems. We plan to work
on theory and applications of optimal transportation problem.